Translational Control of RuBPCase Gene Expression in Amaranth

Berry 9316806 Photomorphogenesis, the phenomenon of growth and development in response to light, provides a valuable experimental system to study the control of gene expression by environmental stimuli. In Amaranth seedlings, light coordinately regulates the expression of genes encoding the large subunit (LSU) and small subunit (SSU) of ribulose 1,5-bisphosphate carboxylase (RuBPCase), a principle enzyme in photosynthetic carbon fixation. While long-term changes in RuBPCase gene expression are regulated by light at the level of mRNA accumulation, very rapid changes in RuBPCase gene expression are induced at two translational levels. RuBPCase synthesis is rapidly induced at the level of translation initiation when dark- grown seedlings are transferred to light (light-shift), and is rapidly blocked at the level of translation elongation when light- grown seedlings are transferred to darkness. We propose to investigate the regulation of chloroplast-encoded LSU and nuclear- encoded SSU at these two translation steps. Regulation of translation initiation will be investigated in light-grown, dark- grown, and light-shifted seedlings by analysis of polysome- associated proteins, analysis of proteins that associate with RuBPCase mRNAs, and by in vivo and in vitro analysis of RNA sequences and associated factors. Regulation of translation elongation will be studied in light-grown and dark-shifted seedlings by analysis of ribosome distribution and sites of ribosome pausing, analysis of the elongation block in homologous translation runoff extracts, and analysis of polysome-associated proteins. The investigations proposed will provide new insights into coordinate regulation of expression of nuclear- and plastid- encoded genes at the translational level. %%% In plants, light serves as an environmental signal that regulates development. Investigations into light-regulated responses in plants are important in determining how factors that control plant development respo nd to environmental stimuli, such as light. To begin to understand how this occurs, we will study light-control of plant genes responsible for forming the carbon dioxide fixation enzyme in Amaranth, a grain plant. Experiments will be performed to observe how light exposure can control rapid changes in the amounts of the enzyme in the plant. This appears to happen at the level of messenger RNA, which is produced from DNA and afterwards is translated into the plant carbon dioxide fixation protein. Results of this research will provide unique perspectives about light on the genetic control in photosynthesis. In addition, our basic research with Amaranth will contribute to the development of the plant as an important agricultural crop for food production and for industry. ***